Investigation of a Novel Direct Sequence, Code Division Multiple Access Receiver with Near/Far Immunity

This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This is a Phase I project. This project addresses a well- known problem in communications: accurately receiving and demodulating a weak signal in the presence of other, stronger signals. The technique could be used in a diversity of applications including cellular telephone networks and GPS navigation receivers. Conventional direct sequence, code division multiple access (CDMA) receivers have limited capability for preventing mutual interference in the reception and demodulation of the CDMA signals. Performance of a new CDMA receiver structure providing much more rejection of the interfering CDMA signals for a given bandwidth spreading ration is being investigated. The new receiver structure applies its additional protection to each of the CDMA signals to be received using a hardware-efficient embodiment.